Applications of Fourier Analysis to Banach Space Theory

The PI plans to study finite dimensional normed spaces and convex bodies
using methods of Fourier analysis. The idea is to express different
properties of convex bodies in terms of the Fourier transform and then
solve geometric problems using Fourier analytic methods.
This approach has already led to several results including a
complete analytic solution to the Busemann-Petty problem on sections
of convex bodies. The PI plans to develop new connections between
the Fourier transform, spherical harmonics and parallel section functions
(X-rays) of convex bodies that will lead to new results on critical sections
of convex bodies, intersection and projection bodies and to new results
of Busemann-Petty type. A significant part of the work will be related to
several open problems of the local theory of Banach spaces. This includes
several possible Fourier analytic approaches to the slicing problem and
the study of the central limit properties of convex bodies.

An important direction of the geometry of normed spaces is the study of
geometric properties of convex bodies based on the properties of sections
and projections of these bodies. This direction has already found
numerous applications to engineering and medicine, starting with the
classical theory of X-rays and geometric tomography. The goal of this
project is to develop a new approach to the study of sections and
projections of convex bodies based on methods of Fourier analysis.
New connections between sections of convex bodies and the Fourier transform
have been recently found by the PI and have already led to an analytic
solution to the Busemann-Petty problem of whether smaller bodies can have
uniformly larger central sections. The connections with Fourier analysis
and geometric tomography will further relate methods and results of the
Banach space theory to different areas of mathematics, engineering and
medicine. New techniques for computing the Fourier transform will have
independent value and can also be applied to signal processing and statistics.